Exploring Ways to Transform Teaching Practices to Increase Native Hawaiian Students' Interest in STEM

The Discovery Research K-12 program seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through research and development of innovative resources, models and tools. The project will integrate Native Hawaiian cross-cultural practices to explore ways to help teachers know about and know how to connect resources of students' familiar worlds to their science teaching. This research is needed since Native Hawaiians are often stereotyped as poor learners; the available STEM workforce falls short of meeting the demands of STEM employers in the state; and as the largest group of public school enrollees, data show a greater decline in percent of students meeting or exceeding proficiency in science at higher grade levels. This project will address these issues by transforming the ways teachers orient their teaching at the upper elementary and middle grades through professional development courses offered at the University of Hawaii at Manoa.

The professional development model for teachers will be situated in the larger national and global contexts of an increasingly technology oriented, urbanized society with associated marginalization of indigenous people whose traditional ecological knowledge and indigenous languages are often overlooked. Guided by the cultural mental model theory and a mixed methods approach, data will be collected through document analysis, surveys, individual and focus group interviews, and pre-post assessments. This approach will capture initials findings about the influence of the professional development model on teaching and learning in science. The end products from this project will be an improved professional development model that is more sensitive to contexts that promote learning by Native Hawaiian students. It will also produce a survey instrument to assess student interest and engagement in science learning whose teachers will have participated in the professional development model being explored. Both outcomes will potentially be instrumental in changing the way approximately 2000 Native Hawaiian students learn about and become more interested in STEM fields through their natural world.